COLLABORATIVE RESEARCH: Atmospheric Dust as an Archive and Agent of Climate ChangeDuring the Late Paleozoic Icehouse

COLLABORATIVE RESEARCH: Atmospheric Dust as an Archive and Agent of Climate Change During the Late Paleozoic Icehouse

Gerilyn Soreghan, Michael Soreghan, University of Oklahoma Ear-0746042
Vadimir Davydov, Boise State University, EAR-0746107
Natalie Mahowald, Cornell University, EAR-0745961
Timothy W. Lyons, Univ. California, Riverside, EAR-0745602

Abstract
Atmospheric dust archives and drives climate change. Dust preserved in marine and continental sediments and ice has shed light on recent climate change, and dust also impacts climate via direct and indirect effects on the amount of solar energy received at Earth's surface, and by fertilization that stimulates primary productivity and thus the carbon cycle. However, the character and magnitude of the aerosol effect remains a poorly constrained variable in climate models, thus limiting the predictive capability of these models.
In this research, PIs propose to assess the 'dust effect' by investigating the geologic record of a particularly dusty interval on Earth. The late Paleozoic world, 300 million years ago, was remarkably dusty, with dust flux varying on both million-year and millennial scales. This time period is also attractive as the last time that Earth's climate was analogous to today's, with large polar ice sheets. Here, PIs propose to test the overarching hypothesis that the abundant dust played a significant role in driving changes in late Paleozoic climate and linked (e.g. biotic) systems, through direct, indirect, and feedback effects. They will investigate how dust flux, atmospheric circulation, and dust transport varied between glacials and interglacials, how dust forced changes in tropical climate, and how the biosphere responded to such high atmospheric dustiness. To address these questions, PIs are targeting two time slices in localities spanning the girth of the tropics. They will examine dust distribution, assess atmospheric dustiness and wind strength and direction, and use geochemistry to examine effects on marine life. They will correlate among localities using fossils and radioisotopic dating. PIs will use the data they collect as input for climate- and dust-modeling experiments, to assess the direct and indirect effects of dust on atmospheric behavior and undertake biogeochemical modeling aimed at assessing the impact of variable nutrient fluxes on cycling of carbon.
Intellectual Merit-- Results of this research will provide a high-resolution reconstruction of climate for the tropics and reveal the effects of dust on climate and life in a world characterized by variable dust flux on various timescales, within a 'glacial' world like today's. Owing to the known importance but remaining uncertainty of the roles of dust and associated aerosols in the climate system, our data will have predictive utility in expanding our understanding of Earth-system behavior across geologic time, and will provide important constraints useful for improving climate modeling.
Broader Impacts--This project will involve heavy student participation (graduate and undergraduate levels), cross-disciplinary training among geologists, geochemists, and climate modelers, both in the field and laboratory. Undergraduates (geology and education majors) and minority middle-schoolers will take part through mentoring programs. Data will be archived and shared using newly developed web-accessible tools. Finally, we will use results of this research to guide the development of a traveling exhibit on the 'Paleozoic Dust Bowl' in conjunction with the Oklahoma Museum of Natural History and incorporate results in an outreach course taught (by co-PIs) at the Museum.